VSA Mid Career Education Program for Informal Learning Evaluators

The Visitor Studies Association (VSA) will plan a Continuing Education Program for Mid-Career (Practicing) Professionals in informal learning research and evaluation. VSA is in a position to expand its traditional in-depth workshop program to a more comprehensive and systematic, non-formal, continuing education program. The planning activity will take place in conjunction with the 2005 VSA annual conference. During the planning meeting, content and process will be examined and the end result will be a plan that includes recommended content, competence and a flexible, creative delivery mechanism. The project will directly addresse the informal learning infrastructure as the need for understanding the processes and products of informal learning, and as outcome-based evaluation becomes increasingly important due to the ever growing interest in program accountability. Once this program is in place it will serve those mid-career professionals who recognize visitor studies as a profession with its own body of knowledge, principles and ongoing research. It will serve those who are interested in research in informal learning and evaluation regardless of how they came to be in the field or how their job relates to evaluation.